Algebraic Maps: Topology and Algebraic Cycles

The investigator and his collaborator work on
the topology of complex algebraic maps, with applications
to algebraic cycles
and to non-algebraic maps.
The study of the relations between the topology
of the domain and target of a map
is interesting and has broad applications
in the fields of geometry and topology.
The investigator works on:
1) a topological and Hodge-theoretic proof of the so-called
Decomposition Theorem for algebraic maps,
2) finding the topological obstructions to the
validity of the theorem for other maps,
3) computing intersection forms arising from maps in significant
cases, and
4) applications of the Decomposition
Theorem to algebraic cycles.
Several new methods are being introduced
as a result of these studies.

The term ``algebraic maps" above is a technical term
for polynomial equations.
Algebraic geometry is the discipline devoted to their study.
It is an ancient subject rooted in the early achievements of
humanity, like the wheel, the Egyptians' elliptical flowers
arrangements and Archimedes' burning parabolic mirrors.
Circles, ellipses and parabolas arise from the polynomial
equations we study in high school. They are both beautiful
and ubiquitous in nature as they describe many natural
phenomena, from the motion of planets to the shape of leaves
and flowers, to the behavior of microscopic particles.
The funded project is strongly inclined towards pure research
and proposes to study the deeper properties
of the solutions to more complicated algebraic equations.
As it has always been the case, pure and applied mathematics
will influence each other and new abstract ideas will fuel the
progress of applications.